The Paul J. Scheuer Symposium

With this Award, the Organic and Macromolecular Chemistry Program of the Division of Chemistry and the Japan Program of the Division of International Programs support the Paul J. Scheuer Symposium on Marine Natural Products Chemistry. The symposium will bring together junior and senior chemists interested in the broad area of marine natural products chemistry at the 2000 International Chemical Conference of Pacific Basin Societies which will be held in Honolulu, Hawaii during December 14-19, 2000. Speakers reflect a wide variety of subfields within marine natural products chemistry, such as microbial diversity, chemical ecology, anticancer marine natural products, and synthetic studies on marine natural products. In addition, speakers will discuss their vision of the field of marine natural products as the new millenium opens.